LCE: Variational Multiscale Methods to Embed Macromechanical Formulations with Fine Scale Physics

Mathematical and computational methods will be developed to endow the
macromechanical continuum formulation with the fine scale physics of
micromechanical material models. Cases of interest are: (1) Micromechanical
models that are typically applied at spatial scales of the order of a
micron. (2) Theories which incorporate microscale kinematics, constitutive
laws, forces and force balance coupled with macroscopic counterparts. The
aim is to extend the applicability of fine scale micromechanics to
macroscopic problems, which could then be analyzed with enhanced physical
accuracy by the resulting multiscale model. The methods eliminate the need for
computational grid refinement to the finest microscales, thereby ensuring
efficiency, while preserving a tight coupling between coarse and fine scales.